Source and Fate of n-Butyltin Compounds in the Aquatic Environment

This is a recommendation for an award to support research on the source of compounds containing tin in the aquatic environment and their transformations and fate when subjected to environmental forces. The use of compounds containing tin in formulations of anti-fouling paints is increasing rapidly. The objective of this research is to study the accumulation and decomposition of tin compounds by bacteria that are resistant to its toxic effects and to determine effects of processes that involve tin compounds on algae, pore water/sediments and shellfish. This proposal has objectives consistent with those of the Environmental Engineering Program. The investigator's qualifications are consistent with the nature of this work to be conducted. This is a renewal of research previously conducted under NSF Grant No. CEE-8116960 under which the investigator developed analytical techniques and model systems for the topic on which he now proposes to concentrate his effort, viz. on the environmental "compartments" through which tin can move. Award is recommended as a 36-month continuing Grant, the initial increment of which is in the amount of $72,224 for 12 months starting on December 15, 1986.